Collaborative STEP: Bridges to STEM Careers

This project is a collaboration between the University of Houston - Clear Lake (UHCL), an upper-level undergraduate and graduate university, and three campuses of the San Jacinto Community College district (SJC) to increase attainment of STEM associates and baccalaureate degrees, as well as to facilitate and increase transfer of STEM students across the institutions. The project focuses on increasing student engagement and persistence through the development of face-to-face and technology-enhanced learning networks, both within and across campuses. Supporting initiatives include extended orientation programs, peer and faculty mentoring, career-awareness and enhancement activities, and modest financial aid. The intellectual merit of the project lies in the strong partnership between the baccalaureate and associates institutions, well-designed and coherent project elements which build on literature-based best practices and successful pilot studies, clear implementation strategies, well-planned evaluation, and extensive involvement of local STEM industries. Broader impacts include enhanced support at these Hispanic-serving institutions, with additional efforts to reach women, veterans and/or low-income students. Project graduates deepen and diversify the local STEM workforce, and the project provides a useful model for linking associates and baccalaureate institutions, as well as local STEM employers, to support student retention and success.